Science Education for Excellence and Equity in Chicago (SEEEC)

In collaboration with a wide variety of non-profit organizations (Project SYNCERE, Little Village Environmental Justice Organization, Chicago Freedom School, Chicago Botanic Garden, Friends of the Chicago River, Institute for Latino Progress), the University of Chicago-Illinois seeks to prepare 30 new science teaching fellows (TFs) while building the capacity of 10 master teaching fellows (MTFs) to be leaders in urban science education. The project will address the professional development of all participants through a three-pronged mechanism which emphasizes (a) content-specific information that focuses on Next Generation Science Standards, (b) culturally relevant practices, and (c) teacher inquiry/research. The work will be performed in partnership with the Chicago Public Schools.

Recent graduates, career changers, and in-service Master Teachers will be provided with (a) a broad range of science concentrations including biology, chemistry, earth and space science, environmental science, and physics, (b) a unique urban perspective on science education that emphasizes diverse learning assets and equity, and (c) professional development opportunities within a community of faculty, teacher-leaders, and non-profit organizations. TFs will be prepared for licensure while earning a Master's in Instructional Leadership: Science Education, learning to teach and examine their practice as it relates to teaching, and learning within specific communities. MTFs will learn to conduct practitioner research and lead teacher inquiry groups examining essential and enduring challenges in STEM teacher practice and student learning. Formative and summative evaluation will focus on analysis of both qualitative and quantitative data related to degree and licensure attainment, the various teaching practice activities (lesson plans, participant surveys, etc.), and progress in meeting the overarching project goals. In doing so, the project will advance knowledge and understanding of the role played by community-based partnerships of university faculty, school teacher-leaders, and local non-profit entities in enhancing teacher education and development, and the circumstances that promote their success. The results of this work will be presented at national meetings of the American Educational Research Association and the American Association of Colleges of Teacher Education.